CAREER: Methods for Comparative Genomics

Proposal # DBI-BDI: 0347952
PI: Batzoglou

Abstract

Stanford University has been awarded a CAREER grant to evaluate emerging methods of genome comparison, to improve existing methods and to develop new ones when appropriate. The concentration will be on devloping comprehensive reference maps, or alignments, of whole genomes to locate biologically functional and evolutionarily constrained elements, and to trace their evolutionary history. The results will be included in collaborations with multiple whole genome sequencing efforts. There will also be a significant course development component and several undergraduate and graduate students will be included in the effort.